Research Experiences for Undergraduates Program (REU)

Undergraduate students work with a Santa Fe Institute faculty mentor on an individual project focusing on some aspect of the computational properties of complex systems. SFI's broad program of research is aimed at understanding both the common features of complex systems and at comprehending the enormous diversity of specific examples. Projects focus on adaptive computation; physics, mathematics, information science, and computational aspects of complexity; economics as a complex,adaptive system; and the life sciences including modeling of the immune system, theoretical neurobiology, genetic data analysis, theoretical ecology, and models of protein folding. This program is highly individualized. Each student works with one or more faculty mentors on a specific self-selected project. Participants are expected to be in residence approximately 10 weeks, within the approximate mid-May to mid-August window.